Modeling Middle School Mathematics

9819101
REYS

This professional materials development project will develop materials to support the implementation of the NSF-supported middle school mathematics curriculum projects. These materials include: video lessons highlighting activities from all five of the aforementioned projects; print support materials for each video lesson indicating where the lesson appears in the mathematical development of the project, specific teaching suggestions, and cross references to the other four projects; interactive, facilitated, web-based resources which provide for participant discussion and special online events. The project is designed for mathematics teachers, mathematics supervisors, district coordinators of instruction, and teacher educators. The project will link with the NCTM Principles and Standards for School Mathematics (Standards 2000, NCTM, 1998) and is supported by the Show-Me Implementation Center for middle school mathematics.